Determination of uptake and elimination rates for isotopically enriched ZnO nanoparticles by Eisenia Fetida and the potential for trophic transfer

Abstract

#1236083
Lev, Steven

Intellectual Merit: The use of engineered metal nanoparticles (NP) in consumer products such as washing machines and cosmetic products is becoming widespread. As an example, ZnO NPs have the ability to absorb ultraviolet (UV) light when below the size of 100 nm, and are commonly found in sunscreens. Considered to be the richest family of nanostructures, ZnO NPs are also used as rubber additives, pigments, and in photoelectrodes. Environmental exposure to nanoparticles is not a new concept and organisms have adapted to natural exposures; the concern lies with the recent influx of manufactured nanoparticles that may have a detrimental effect on the environment. With the majority of NPs being released to the environment through municipal waste water and sewage sludge mediums, aquatic and terrestrial systems are a likely sink for manufactured nanoparticles. The fates of these nanoparticles once released into the environment and the potential for transfer of NPs to organisms higher in the food web (e.g. birds and small mammals) are open questions. This investigation will utilize nanoparticles with a chemical fingerprint to track the fate of NPs in soil and the potential for uptake and transfer to higher-level organisms using the earthworm Eisenia fetida. Earthworms are in constant direct contact with soils and are an important potential entry point into the terrestrial food web where bioaccumulation of NPs can occur in higher-level organisms. The fingerprinted NPs in this study will be readily discernibly from other sources of Zn in the soil and the earthworm. The behavior of the fingerprinted NPs in a soil system will be compared with other non-nano forms of Zn (bulk ZnO powder and ZnCl2) over time to evaluate the impact of soil ageing on the bioavailability of the different Zn forms. This general approach will be used to test the following hypotheses; 1) There will be no difference in the uptake or elimination of Zn by E. fetida among all three forms of Zn, indicating that zinc NPs are easily eliminated by E. fetida and there is no potential for transfer via earthworms to the terrestrial food web and, 2) There will be no difference in the uptake or elimination of Zn by E. fetida among the three zinc treatments after 42 days of ageing and that these treatments will not differ from the initial experiment.

Broader Impacts: An understanding of nanoparticles' fate in soil systems and their impact on the wider environment, which ultimately impacts the quality of our lives, is of prime interest to our society. There is a critical need for scientists trained to understand these types of emerging systems. This project will provide educational opportunities at all levels. Minority students with an interest in working on this project will be identified and recruited through an active NSF STEP program "Towson Opportunities in STEM" (TOPS). All involved students will work as part of a multi-disciplinary research team over the course of the project. Results from this investigation will be disseminated by students at the Towson University Research Expo, at appropriate professional conferences as well as through the peer-reviewed literature.